Regulation of Gene Expression at the RNA Processing Level (Travel Award)

After completion of my degree I will be pursuing postdoctoral in the field of gene expression. I intend to explore the area of regulation of RNA processing in viral systems. I have selected the Pasteur Institute in Paris as my first choice for several reasons. First, the contributions from the Pasteur Institute to basic science research, especially in the field of virology, have been outstanding. From a review of the literature, it appears to me that their scientific community as well as their technical assets provide an excellent resource of quality research. Second, I perceive that exposure to the scientific approach of the European community would be an experience of great benefit. I base this opinion on my previous experience of moving into the mainland USA, which has been the single most beneficial step for my scientific and cultural life.